Revised Version - IERI: Scaling Up Instructional Improvement

This project will conduct a five-year study on the scale up of complex instructional innovations. The PIs construe scale up to mean both widespread adoption and high quality implementation. Using three large whole-school projects-Success for All, America's Choice, and Accelerated Schools, the project will examine two issues:

1. To what extent do design and environmental factors influence attempts to bring high-quality implementations of educational innovations to large numbers of schools?

2. How do the designs and educational environments affect the problems of scaling up, and how do interventions and implementers manage these problems?